GOALI: Multi-functional composites for load-bearing skeletal applications

Wie
0503315

ABSTRACT

In this BME/RAPD/GOALI initiative program, the applicants will explore a new apatite/fibrous
polymer composite featuring a Young's modulus matched to natural bone, sufficient mechanical
strength to support reasonable loads during the healing process, excellent biocompatibility,
capability of controlled release of drugs, good osteoconductivity and osteoinductivity to enhance
both bone formation and ingrowth, appropriate degradation rate, and capability of being replaced
by natural bone in a long-term. The specific objectives are:
o To prepare bone-like carbonated hydroxyapatite (CHA)/ fibrous polymer composites with
Young's modulus and mechanical strength matching that of cortical bone using novel
polymer-braid constructions.
o To obtain excellent biocompatibility and osteoconductivity of the composite by biomimetic
formation of bone-like CHA on the surface of polymer fibers.
o To explore the possibility of using the novel constructions proposed in the study as a more
sophisticated drug delivery system.
o To understand the interrelationship between the composite mechanical properties and the
fiber composition, fiber surface modification, formation of trans-crystallinity, and CHA
loading by conducting systematic experimental work and comparing the data with the
predictions of theory.
o To gain an in-depth knowledge of the effect of the composite composition, construction,
and geometry on the bone formation rate on the composite using a series of cell culture
assays.